Partners for Terrific Science

Partners for Terrific Science (PTS) is a multi-faceted teacher enhancement project for 4th through 12th grade teachers. The five initiatives are: 1. an academic year Industrial Applications Workshop (IAW) for intra-district teams, 2. summer Industrial Internships for graduates of the (IAW), 3. a Facilitator's Program enabling engineers, scientists, university faculty and master teachers to establish PTS programming, 4. two-week summer workshops where the teachers concentrate on the science and technology of one- industry and develop corresponding classroom materials, and 5. a concerted outreach effort to disseminate PTS. Written materials include: Partners for Terrific Science Handbook, workshops materials developed by the mentor teams, and Handbook updates. Project faculty include teams of industrial scientists and engineers, university science or science education faculty, and Partners for Terrific Science will take place at Miami University beginning in September, 1991, and ending in March, 1995. The PI is Mickey Sarquis. The project includes both summer and academic-year activities with appropriate follow-up elements. Model site programming, facilitator efforts, and second generation outreach efforts will be evaluated through an on-going multi-step process that will allow continual monitoring of progress toward stated goals. Cost sharing equals 212% of the NSF award.